Collaborative Research: Development of a new autonomous surface vehicle for detection of seafloor subduction zone earthquakes and tsunamis

The investigators plan to develop a new Uncrewed Surface Vehicle (USV) for seafloor geodetic surveys that would be faster, simpler to deploy, and allow for precise positioning. This will enable the capture of transient subduction zone slip processes, including slow slip events (SSEs). SSEs are earthquakes that happen gradually over days to months. SSEs typically happen where tectonic plates meet underwater and may trigger large earthquakes that can produce tsunamis. SSEs may hold the key to understanding damaging megathrust/tsunami processes, which would improve forecasts of these events. Studying large earthquakes and understanding tsunami risk is vital for comprehensive natural hazard reduction. The investigator is an early career scientist. The investigator is an early-career scientist, and this project will support the career development of both the investigator and participating graduate students. The project will also leverage a institutional training program focusing on industry-academia partnership in technology development.

Detection of shallow slow slip events (SSEs) is a key goal for the field of seafloor geodesy. Global Navigation Satellite Systems - Acoustic (GNSS-A) is a hybrid geodetic technique that marries the capabilities of a satellite geodetic system such as Global Positioning System (GPS) with acoustic technology, allowing precise positioning and location of seafloor benchmarks. GNSS-A requires a water-surface vehicle that is accurately located via GNSS, while acoustically ranging to sea-floor markers. After a decades-long development/demonstration period, GNSS-A is now accepted as an operational geodetic tool, especially useful for studies of subduction zone megathrust earthquakes and tsunamis. Slow speed, cost, and deployment complexity are the main problems with current technologies. The investigators will develop and test a new, faster, and more cost-effective autonomous vehicle system for GNSS-A surveys. The Geodesy community needs a vehicle capable of completing a survey of a given seafloor geodetic network in a week to ten days, at lower cost that can be launched without a support boat.